Workshop on Natural Language Processing for Internet Freedom

This workshop brings together natural language processing (NLP) researchers whose work contributes to the free flow of information on the Internet. It should foster collaboration across disciplines, and between theoreticians and practitioners working in academic or industrial settings. This workshop could have a transformative impact on society by getting closer to achieving Internet freedom in countries where accessing and sharing of information are strictly controlled by censorship.

The topics of interest in this workshop include censorship detection, censorship circumvention
techniques, linguistically inspired countermeasures for Internet censorship, and techniques to
empirically measure Internet censorship across communication platforms. The workshop includes researchers working in the field of NLP, computer science and social sciences. Graduate students, faculty, and researchers from industry will participate.